A RISC Computer System for Design of RHIC Detectors

This grant provides partial support for the purchase of a reduced instruction set computer system for use by the designers of a major detector for the Relativistic Heavy Ion Collider. The design group is centered at the State University of New York at Stony Brook. The computer will be used for event simulations and development of codes for event reconstruction and analysis.